Collaborative Research: Global Phytogeography of the Early/Late Carboniferous Boundary Based on Spores and Pollen

9417991 Eble This proposal will augment the collaborative effort by supplying the location of sample sites, and for the physical collection of samples from outcrops and cores. While this proposal is being submitted independently, it is intended as part of the collaborative project mentioned above.